A Global Regulon in Escherichia coli Controlled by the Leucine-Responsive Regulatory Protein

The leucine-responsive regulatory protein (Lrp) is a recently discovered transcriptional regulator from Escherichia coli that mediates extensive changes in gene expression, and acts both positively and negatively. The first genes assigned to the Lrp regulon were identified by their Lrp-dependent response to leucine. We have used two-dimensional gel electrophoresis to identify over 30 polypeptides whose expression is regulated by Lrp. Expression of the majority of genes in the regulon is, in fact, not affected by leucine. These experiments are designed to systematically identify genes and proteins in the regulon, and to characterize the mechanisms of action of Lrp on these target genes. We are particularly interested in studying the regulation of leucine- independent genes, and in determining what physiological factors govern their interaction with Lrp. We have identified glutamate synthase (GltBD), and outer memebrane porins OmpC and OmpF as proteins that are regulated by Lrp in a leucine-independent manner. Our initial studies are designed to distinguish between direct and indirect effects of Lrp on the expression of these genes, and between transcriptional and translational regulation. We will determine N-terminal sequences of polypeptides whose expression is regulated by Lrp, and design oligonucleotides for cloning the relevant genes. We will also use blotting and two-dimensional band shift assays to identify DNA sequences that bind Lrp, and to clone the corresponding genes. %%% These studies should provide clearer understanding of the physiological role of Lrp, the means by which it controls its target genes, and the integration of metabolism by global regulators.